Nonlinear Output Feedback Control

ECS-9703742 Khalil It is proposed to conduct research on the design of output feedback control of a class of nonlinear systems. The class of systems to be considered is the class of input-output linearizable systems, which arise in many applications such as robotic manipulators, aircraft control, and electric machines. The design procedure starts with the design of a state feedback control followed by the design of a robust observer to recover performance achieved with state feedback. The performance of such observers are usually hindered by difficulties due to measurement noise and excessively large transient response. The principal investigator has shown that the undesirable transient behavior can be eliminated by designing the feedback control to be globally bounded. This proposal aims at developing a comprehensive theory for the design of globally bounded output feedback controllers. Problems to be investigated include nonlinear separation principle, adaptive control, multivariable systems, application to induction motors, and implementation issues.